Role of the Metalloproteinase Stromelysin in Axon Invasiveness

Stromelysins are a family of secreted metalloproteinases that degrade various components of the extracellular matrix. Recent evidence suggests that the secretion of stromelysins from nerve cells may play a role in axonal growth. To address this issue, the neuronal-like clonal cell line, PC12, will be used in a novel in vitro assay to study the effect of experimentally manipulated stromelysin levels on neurite invasiveness of basal lamina. The possible release of stromelysin from PC12 growth cones will also be studied using immunocytochemistry and in situ substrate degradation. In addition, possible tissue-specific and developmental stage-specific expression of stromelysin mRNA will be studied in the embryonic rat. These studies promise to enhance our understanding of molecular mechanisms involved in the growth of axons.